Laser for Generating a Sodium Flourescence Guide Star

The imaging performance of ground-based astronomical telescopes is compromised by atmospheric turbulence. There has been increased interest in the use of adaptive optics to correct for atmospheric distortion. One general concept for atmospheric compensation involves the use of a so-called artificial guide star, created by illumination of the mesospheric sodium layer, to generate the information needed for control of the adaptive optics. It is the intent of this proposed SBIR effort to design (in Phase I) and test (in Phase II) key elements of a prototype solid state laser for use with a sodium-guide-star system. The laser would employ sum- frequency generation of pulsed, 589-nm radiation from two Nd:YAG lasers operating at 1065 and 1319 nm. In follow-on efforts, a commercial laser would be developed for limited production, and sold to observatories worldwide as part of a complete atmospheric- compensation system.